Support for U.S. - Japanese Workshop on Critical Information Infrastructure Protection; September 28-29, 2004; Arlington, VA

Proposal Number: 0455350

TITLE: : Support for Support for US Japanese Workshop on Critical Information Infrastructure Protection

PI: Julie Ryan

Abstract:

The proposed activities will facilitate and support a workshop to bring together US and Japanese expert researchers in areas concerning protection of critical information infrastructures. The workshop goal is to identify and initiate the development of future collaborations between U.S. and Japanese researchers in specific technical areas. The workshop will include technical presentations from researchers from both countries, mutual discussion related to these topics, informal discussions, and government-government discussions. Support will include simultaneous interpretation for the formal discussions during the workshop.